Oceanographic Technicians, 2000-2002

0074560
McDuff
This award to University of Washington provides shipboard technical support, shore-based support, as well as maintenance and calibration of shared-use scientific instrumentation, for researchers using R/V Thompson, a general purpose research vessel operated by the university's School of Oceanography as part of the University-National Oceanographic Laboratory System research fleet. The award also provides support for research using a multibeam echosounding system on R/V Thompson. The technical support awarded here will assist NSF-funded researchers conduct a diverse suite of oceanographic studies, principally in the North Pacific Ocean, beginning in 2000.
***